Development of a Theory of the Coupled Ocean-Atmosphere System

This project continues work on the development of a theoretical model of the coupled atmosphere-ocean system forced externally by solar insolation. The model is to be used to determine meridional variation of the Earth's climate. The energy balance in the model will be achieved, not by invoking the second law of thermodynamics which is only applicable to an isolated system, but by maximizing the internal entropy production rate. The proposed theory represents a logical extension to include dynamics into a one-dimensional climate model, taking into account the mechanical and thermal forcing of the ocean to reduce the model state to a few fluid masses. The integration of thermodynamics and dynamics into a single theoretical framework is expected to advance our understanding of the observed climate.

The proposed theory, if successfully applied, would be of considerable value to the climate community, especially in its potential for application to long-term prediction of climate behavior. If the theory proves untenable, the work will be valuable in exposing its shortcomings.